The Second Internationla Conference on Random Dynamical Systems

This award supports travel for participants from the US to China in the conference
"Second International Conference on Random Dynamical Systems", held 20-22 June 2011 at Nanjing Normal University, Nanjing, China.

The conference will bring together leading experts in Stochastic Partial Differential equations and Random Dynamical Systems. The conference will enhance communication among junior and senior researchers in these two fields. The conference encourages and supports participation by graduate students, junior researchers and members of under-represented groups.
Conference web site: http://math.njnu.edu.cn/web/home.html